Presidential Young Investigator Award

This project will combine measurements on the thermodynamic properties of minerals with applications to important field localities. These particular measurements will make possible estimates of the pressure at which the rocks formed and hence of their depth in the earth's crust at the time of formation.